Particle Theory Research Physics Teaching, and Outreach to Women in Science: A Career Development Plan

9501249 Simmons The unified theory of electroweak interactions has several unresolved problems, the key ones being the understanding of what is the mechanism that breaks the symmetry between the weak and electromagnetic interactions and how are the fermion masses generated. This research seeks to address these problems and to propose experimental tests for discovering the symmetry breaking mechanisms. ***